Advanced Biotechnology Education Project

Shahla Sheikholeslam DUE 9553708 De Anza College FY1995 $ 225,306 Cupertino, CA 950145702 Advanced Technological Education Title: Advanced Biotechnology Education Project The proposed project seeks to develop an advanced biotechnology training program that can serve as a satellite model program for other community colleges in California and the nation. The fundamental objective is to advance and broaden students knowledge and hands-on experience in the area of biotechnology. The new laboratory instructions will foster technical training and will help students gain marketable skills for the workforce.